RUI: Ultrasonic Integrated Microsensing Module for the Long Cane

9402818 Gao The research proposed in this application is concerned with developing a self-contained, micro ultrasonic transducer module with on-board electronics which can be fully integrated into the shaft of a conventional long cane to assist the visually impaired in perceiving overhanging obstacles that are not detectable by traditional canes. Upon obstacle detection, a human voice signal, describing in key words the distance and height of the target, will be displayed to assist in orientation. The first phase of the research focuses on the human factor study to specify design rules that adequately serve the need of the potential users. The second phase will concentrate on the design, modeling and prototyping of the transducer. Focus will be on the circuit miniaturization using established IC foundry technologies, and the adaptation of the module to the cane. The final phase will be the performance evaluation and optimization which will be conducted in close cooperation with the Louisiana Center for the Blind in Ruston, Louisiana. ***